Solution Rectification for Complex Planar Linkages

Solution rectification procedures are developed for synthesizing complex planar linkages. The procedures enable rapid location of the best solutions among the many alternative solutions to a synthesis problem. The research extends existing methods for four-bar linkage solution rectification to more complex mechanisms, such as six-bar linkages. The results will enable a designer to move directly from a high-level problem specification, consisting of the description of the motion required from a mechanism, to a highly-optimized solution, consisting of the topology and dimensions of the linkage that will produce the desired motion.